Mathematical Sciences: Presidential Young Investigator Award

This reserch program includes three related projects: 1. Calculation and visualization of large eddy structures arising in two and three dimensional viscous flow. 2. Development of numerical algorithms for following propagating interface in flames and crystals. 3. Analysis of the effect of wavelength truncation on numerical models for energy cascades. The results from this research program will have a significant impact on current research on combustion and related fluid dynamics problems.